Materials Characterization Using Ultrasonic Attenuation and Scaling Properties

The purpose of this Research Planning Grant for Women Scientists and Engineers is to perform a preliminary investigation of the possibility of developing a procedure for materials characterization using ultrasonic attenuation methods. In particular, this method will be explored to determine if it will be practical for the examination of the grain of materials.